Second International Mathematics Study: Student Growth and Classroom Process in Lower Secondary School

A report on the international results from the longitudinal portion of the IEA Second International Mathematics Study (SIMS) will be prepared by an international team of mathematics educators and other educational researchers and will appear as Volume III in a series to be published by Pergamon Press, London. SIMS is a cross-national study of the content of the curriculum, what is taught and what is learned in school mathematics at two age/grade levels, Grades 8 (Population A) and 12 (Population B), in the United States and several other countries. This investigation will examine mathematics learning ("growth") during the course of a year of instruction and its relationship to specific teaching practices and processes in lower secondary school mathematics classrooms (Population A) in eight participating countries ıBelgium (Flemish), Canada (British Columbia and Ontario), France, Japan, New Zealand, Thailand, and the United States!. This investigation of student performance and teaching practices, within a broader socio- cultural perspective than is possible using only within-country data, represents a unique opportunity to inform national policies and practices at a time of concern about the quality of American mathematics and science education.